An REU Site at Indiana University in Stellar Astrophysics and Beyond

REU SITE: An REU Site at Indiana University in Stellar Astrophysics and Beyond

ABSTRACT

AST 0452975 Deliyannis

The PI, Constantine Deliyannis and collaborators will continue the operation of the Research Experiences for Undergraduates (REU) site at Indiana University. The program brings incoming juniors seniors to Bloomington, IN for 10 weeks during the summer to undertake research with faculty and graduate student mentors. Students also participate in a weeklong observing run on the Wisconsin-Indiana-Yale-NOAO (WIYN) 0.9-meter telescope at Kitt Peak, AZ. Research projects include studies of the properties of star clusters, searches for, and studies of, variable stars, and determination of the chemical composition of stars and star clusters. All students present their results at meetings of the American Astronomical Society.

The broader impact of this program includes the opportunity for promising young scientists to experience research in astronomy, and the resulting encouragement to pursue careers in science. The program aims to recruit underserved minorities and women, and provide them with research experience that can help as they move on to graduate school.